The Paleoclimatic Record of Elgygytgyn Lake, Ne Russia: A Pilot Study

9615768 Brigham-Grette This SGER award supports a pilot study of Elgygytgyn Lake, a large lacustrine basin located 100km north of the Arctic Circle in northeast Russia. This lake was created by a meteorite impact that generated a crater roughly 23km in diameter. The lack of glaciation in this basin makes it highly likely that the modern lake contains a continuous paleoenvironmental record of at least the last 250,000 years, but probably back to the time of impact. It is believed that an international, multidisciplinary project to collect and analyze core materials from this lake will provide a paleoclimate record unparalleled in northern Asia. The objectives in this project are intended to test the hypothesis that this large, but morphologically simple lacustrine system contains a high resolution sediment archive extending through the Holocene and well into the late Pleistocene. If successful, these cores will provide the impetus for a major deep drilling program to retrieve the entire record in the future.